SOFTWARE: Advanced Capabilities for Netlib Computational Software Repositories

The proposed research will lead to the creation of next-generation Netlib (Netlib.ng). While preserving and strengthening Netlib's ability to provide its traditional services: reliable, fast access to latest and best computational software packages, we will explore technologies that adapt Netlib repositories to the new challenges presented by today's computing environment. We will first enhance Netlib's traditional services for both users and developers, principally by using the Repository in a Box (RIB) toolkit to upgrade Netlib's catalogue technology for improved usability and interoperability. Applying RIB tools to Netlib will make it compliant with IEEE metadata standards, substantially improve user interfaces, accelerate repository updates, simplify and decentralize administration, and enable for Netlib.ng to participate in larger virtual repositories without compromising its high standards for quality control. The second part of research aims to automate the full software deployment and management process, i.e. its compilation, installation, configuration, and management. When this work is completed, we believe Netlib.ng will leverage the power of this major community asset to create a rich and scalable solution to some of the complex problems of software deployment and management in the new era of high performance distributed computing we have entered.